Engineering Foundation Conference: "Realizing the New Paradigm for Engineering Education

9802123 Ernst The conference will explore what an individual institution does to change from its present approach to engineering education to the new engineering education. One that seeks to develop students as emerging professionals with the motivation, capability, and knowledge base for life-long learning; one that helps students see the whole world and sense the coupling among seemingly disparate fields; one that incorporates a diversity of backgrounds and approaches; and one that enhances student capability to build connections between the world of learning and the world beyond. The conference will, of necessity, include a brief discussion of how one describes, in broad terms, the New Engineering Education. Most of the conference sessions will examine what changes the engineering school makes to realize the new paradigm for engineering education: * How does a college determine its own version of the new paradigm? * What are some enabling steps for a college in the process of change? * Who are the key players and what might the critical mass of such a group be? * ABE Engineering Criteria 2000: Do the new criteria help or hinder change? * How can the college use assessment processes to guide the change process as well as to determine how well the steps taken have achieved the results expected? * What lessons can we learn from institutions who have made these kinds of changes, the paradigm shifters? An important part of the conference will be presentations by those involved as paradigm shifters in engineering education to share what they did/how they did it as well as what they should have done and how they should have done it.